CAREER: Defending Machine Learning Models from Adversarial Threats via Unified Interpretability and Attribution

Machine learning models increasingly power critical systems in healthcare, finance, and national security. However, their increasing complexity introduces serious risks, as attackers can embed hidden vulnerabilities or exploit obscure failure modes. The project’s novelties are bridging the gap between powerful modern systems and classical, understandable frameworks to build machine learning models that are both secure and interpretable. Instead of treating simpler models as mere baselines, the research uses them to provide semantic validation and explanations for highly complex systems. By translating opaque machine learning behaviors into interpretable representations, defenders trace the origin of failures and repair vulnerabilities. The project's broader significance and importance are enhancing the safety, resilience, and accountability of machine learning systems deployed in high-stakes environments. Furthermore, the work empowers practitioners with tools to interpret complex systems and provides extensive educational outreach, training the next generation of students in cybersecurity-aware machine learning through hands-on labs and new curricula.

The research advances a layered defense framework through four tightly integrated technical thrusts. First, the project develops scalable attribution techniques, combining gradient-based influence methods with symbolic surrogate models, such as decision trees, to identify how adversarial inputs or training data components lead to harmful outputs. Second, the work designs fast, localized model editing strategies to remove harmful behavior without full retraining, utilizing surrogate models to semantically validate that repairs are localized and verifiable. Third, the project builds automated pipelines for training data auditing, provenance tracking, and security-aware valuation to detect data poisoning and instability under distribution shifts. Fourth, the research integrates these signals into an interpretable, real-time interface where users explore suspicious outputs and interactively remediate vulnerabilities. Ultimately, this project establishes a unified approach across the adversarial threat lifecycle, ensuring that resilient, transparent, and trustworthy machine learning tools are openly available for research, education, and applied practice.